Fermion Dynamics on a Lattice

9523013 Pindzola The time-dependent Schroedinger and dirac equations for Fermions is solved on a discrete lattice. The method is applied to problems in multiphoton ionization, heavy-particle collisions with atomic ions and electron scattering. ***